Transcriptional Regulation by P and C1, Two Maize MYB - Homologs

Abstract 9406233 Flavonoid derived pigments are almost universally found in the plant kingdom, providing color to flowers, fruits, leaves and storage organs. The most commonly found flavonoid derived pigment, the anthocyanins, are derived from 3-hydroxy flavonoids. The biosynthesis of the flavonoid derived pigments in maize presents a unique system for the study of the structure and function of transcriptional regulators. A large number of maize genes have been reported that directly affect the amount, hydroxylation pattern and distribution of flavonoids and flavonoid derived pigments. Several of the genes encoding enzymes of the flavonoid biosynthetic pathway have been cloned and characterized: C2, CH1, A1, A2,BZ1, BZ2, as well as others which are shared between the 3-deoxy and 3-hydroxy flavonoid biosynthetic pathways: C2, CH11, A1. The regulation of these pathways in maize is controlled by two classes of regulatory proteins: those with a Myb-homologous domain (C1 and P1) and those with a basic helix-loop-helix domain (members of the R and B families). Anthocyanin production requires the interaction of a member of the C1/P1 family and a member of the R/B families. Thus the pattern of anthocyanin pigmentation in any particular plant part is given by the combinatorial, tissue specific expression of the regulatory genes. The goals of this work are to 1) determine whether the regulation of C2 and CH11 by P and C1 is similar to that of A1 2) characterize the regions of P required for the P regulatory function 3) structurally analyze the DNA binding domain of P and its' relation to other plant Myb-homologs and 4)analyze possible interactions of P with other factors. %%% The biosynthesis of the flavonoid derived pigments in maize presents a unique system for the study of the structure and function of transcriptional regulators, in that the absence of the intermediates or final products of the pathway does not affect maize viability and P activity can be readily scored by inspection of the kernels and cobs. The potential of the system is increased, in that mutants of almost every gene in the pathway are available. The results of this study should give greater insight into the mechanisms of combinatorial regulation of biosynthetic pathways in plants. ***